IUCRC Phase I: Syracuse University: Center for Solid-State Electric Power Storage (CEPS)

The NSF Industry-University Cooperative Research Center for Solid-State Electric Power Storage (CEPS) is comprised of three university sites: South Dakota School of Mines and Technology (SD Mines) as the lead university and partner universities: Northeastern University (NU) and Syracuse University (SU). CEPS is established to provide integration between academia and industry in the pursuit of research focused energy storage innovations. The Center enables industries, government, and national laboratories to meet the challenges of safe, efficient, and environmentally-friendly energy storage by adopting critical solid-state energy systems and enabling translation into industrial use driven by upstream basic research. As a multi-disciplinary collaborative consortium, CEPS will acquire long-term sustainability through strong support from stakeholders and leveraging partnerships at the state and national level. CEPS's intellectual merit is in addressing significant challenges in energy storage. The Center seeks to create and provide U.S. leadership in energy storage research closely linked to green technologies and environmental sustainability.

CEPS combines knowledge, intellectual property, and research capabilities in two challenging platforms: materials and materials manufacturing. Both fundamental platforms synergistically embrace studies using atomic layer deposition, engineering at the areas through industry-driven research projects leading to safe and sustainable next-generation energy storage for various applications. The Center incorporates a national team of research scientists from three U.S. states: South Dakota, Massachusetts, and New York, to address both the immediate and longer-term industrial needs of the energy sector. CEPS seeks to cultivate an inclusive learning environment where all faculty, staff, and students can grow and succeed.